Inelastic Scattering of Atoms and Molecules by Surfaces

9726229 Manson This senior PI has enjoyed a long-standing support for theoretical research on scattering of atoms from surfaces and adsorbates. He has developed a formalism to study an important aspect of inelastic scattering, namely one which involves creation of several lattice phonons of the target. In this grant he is planning to extend this formalism to include the presence of an adsorbate, and in particular complex multi atom objects, e.g. hydrocarbons. He is planning to study the role of the adsorbate internal degrees of freedom in inelastic atom-surface scattering. There are in addition several associated projects of fundamental importance. One considers the development of surface sticking in both quantum and classical regimes and which leads to considerations of energy accommodation coefficients and lift and drag coefficients . In another project, the PI plans to consider the scattering of a metastable Helium atom. This work will involve collaboration with experimental groups at the Florida State University, the University of North Carolina and the Max Planck Institute at Gottingen. %%% This renewal grant to a senior PI is in support of theoretical work on scattering of atoms from surfaces, especially aspects of energy loss during scattering. This grant includes study of the role of atoms and molecules present at the surface, especially as the energy is shared between the internal vibrations and oscillations of these atoms (or molecules) and the heating of the target. He will also consider the characteristics of scattering of highly excited projectiles and the associated questions about sticking and energy loss. ***